Upgrade to the IGPP Mass Storage Facility

0098015
Orcutt
This award to Scripps Institution of Oceanography at the University of California, San Diego, provides instrumentation to upgrade the IGPP Digital Library with the addition of tape storage systems, server, software upgrades and related items. The facility is used to store a wide variety of geophysical and oceanographic information, allowing collaboration among widely-separated research groups, and maintaining direct access to a wealth of historical information. This upgrade will increase speed to access data, and will more than double existing capacity for online data storage to more than 20 Tbytes. These improvements will be of substantial advantage to ocean scientists using the facility in their research during 2001 and future years.
***